CSR---AES: Programming Language and Runtime System Support for Robust Distributed Software Systems

Collections of heterogeneous, network-connected computational devices
have emerged as a new computational paradigm. This new network-based
paradigm simplifies constructing flexible and scalable hardware
infrastructure. Unfortunately, making such systems robust to failures
can be difficult. Many of these distributed software systems contain
a large number of devices, and therefore, have a significant chance of
experiencing a hardware failure. Developers have to manually develop
code to allow the software system to recover from such hardware
failures. As a result, developing robust distributed software systems
is typically more difficult than robust centralized software systems.

This work builds upon the Principal Investigator's prior work on the
Bristlecone language for developing robust software systems. The key
insight behind the Bristlecone language is that most errors propagate
through software systems to cause further damage either by corrupting
data structures or through the control-flow--induced coupling between
conceptual operations. Bristlecone programs are architected as a set
of decoupled tasks that are linked through a set of task
specifications that describe how these decoupled tasks interact and
what consistent data structures look like. Bristlecone then uses
these specifications to adapt the program's execution in response to
failures.

This project extends the previous work to support distributed software
systems. This project develops static analyses to help developers
understand how failures in the underlying hardware will affect the
software system and to manage data and tasks so that hardware failures
have a minimal affect on the computation.